SBIR Phase I: Extrusion Freeforming of Superfinishing Polymer Composite Platens

*** 96-60802 Lombardi This Small Business Innovation Research (SBIR) Phase I project will develop novel, high efficiency superfinishing polishing platens using extrusion solid free forming technology. These platens will be composed of engineering themoplastics reinforced with chopped carbon fibers and/or diamond abrasives. The platens will also have varying amounts of microchanneling throughout their structures to collect polishing swarf more efficiently compared to conventional polishing platens. These superfinishing platens are thought to represent a major innovation in ultraprecision polishing technology and will find extensive commercial application in the U.S. electronics industry. ***